Spin Observables in Photomeson Reactions

This proposal involves theoretical work on predicting spin observables in the photo- and electro- production of mesons. Precision measurements of cross-sections and spin observables will be made at Thomas Jefferson National Accelerator Facility (TJNAF) and at several other facilities involving the elctromagnetic production of pion, eta, kaon and vector mesons. Spin Observables consist of polarization, which involves predicting the direction of a particle's spin, and tensor polarization, which involves determining the probability of occupying various spin-state directions. The availability of polarized photons, polarized nucleons and ability to measure the decay from the polarized final vector mesons open up new directions for research in strong interaction dynamics. It is hoped that our theoretical work will increase knowledge about excited states of neutrons and protons and relate that information to the underlying quark model dynamics. In addition to well-known mesons, we will also examine novel hybrid scalar and exotic vector mesons, for which there is some evidence. The nature of those mesons and how they fit into Quantum Chromodynamics will be explored.